CISE Research Instrumentation: Dual-Manipulator Mobile Robot

EIA-9911077
Ning XI
Michigan State

CISE Research Instrumentation: Dual Manipulator Mobile Robot

The Department of Electrical and Computer Engineering at Michigan State University will purchase a dual-arm mobile robot system consisting of a mobile platform equipped with a dual-arm manipulator and various sensors. This equipment will be dedicated to support research in the area of computer and information science and engineering. The equipment will be used for several research projects including in particular: Planning and Control for Cooperative Operation of Multiple Mobile Manipulator in a Perceptive Frame; Task Scheduling and Control of a Reconfigurable Manufacturing Workcell; Heterogeneous Function-Based Human/Robot Cooperation; Multi-Sensor Fusion in Robot Action planning and Control. The objectives of these projects aim at developing theoretical foundations for intelligent planning and control of robotic and manufacturing systems to improve the reliability and efficiency of operations. The requested equipment will provide unique capability to experimentally implement and test new theoretical findings.